Mathematical Sciences: Markov Processes and Related Topics

This group of outstanding researcher propose to continue their studies in to probabilistic potential theory. A new definition of capacity and co-capacity based on Kuznetsov measures is used. Since this does not use the assumption of duality, a general framework for potential theory is expected to emerge. Specific problems to be worked on include transformations of Kuznetsov processes that preserve the Markov property, relationships of homogeneous random measures and entrance laws, existence of right processes with given hitting distributions and general theory of h-transforms of bi-Brownian motions.